International Conference on Ceramic Microstructures 1996: Control at the Atomic Level; University of California, Berkeley

9612164 Tomsia The proposed conference, which occurs only once every ten years, will provide a summary of the progress made in the past 10 years as well as provide a format for establishing research trends on advanced ceramics for the next 10 years. The conference will have sessions on characterization, processing, electrical properties, and mechanical properties after an introductory plenary session. The invited speakers represent the best in the world in their particular areas. %%% The proposed conference, which occurs only once every ten years, will provide a summary of the progress made in the past 10 years as well as provide a format for establishing research trends on advanced ceramics for the next 10 years. The conference will have sessions on characterization, processing, electrical properties, and mechanical properties after an introductory plenary session. The invited speakers represent the best in the world in their particular areas. ***